Topics in Commutative Algebra and Algebraic Geometry

This proposal provides support for the research group in commutative algebra and algebraic geometry at the University of Nebraska---Lincoln. R. Wiegand and S. Wiegand will study local rings of finite Cohen-Macaulay
type. R. Wiegand and Marley will consider homological questions in the
theory of local rings. S. Wiegand will study prime ideal structure in
Noetherian rings and constructions involving a homomorphic image of a
completion of a Noetherian domain. Harbourne will investigate resolutions
of ideals corresponding to finite sets of points (with multiplicities)
in projective space, and related questions. J. Walker will work on
coding theory, including codes over commutative local Artinian
rings. M. Walker will investigate connections between algebraic
K-theory and motivic cohomology.

Often, real life problems involve many unknown parameters which
may be related by equations which are impossible to solve exactly.
Nonetheless, using the methods of commutative algebra and algebraic
geometry, much valuable descriptive information can be gotten about
the sets of solutions, if not the exact solutions themselves. The
investigations discussed in this project concern central problems
in commutative algebra and algebraic geometry. Just as importantly,
many of them are continuations of successful collaborations
with researchers at other institutions. Funds provided under
this proposal will allow the UNL research group in commutative
algebra and algebraic geometry to continue its active involvement
in collaborative research, its success in the professional development
of graduate students and its maintenance as a leading research
group in these areas.